Computer Classrooms for Upper Division Mathematics

This project addresses the need to extend reform from first- year calculus through the second year and into upper-division mathematics. It uses computers in the classroom to assist students' visualization, develop their insight, and enhance their confidence in Multivariable Calculus, Real and Complex Analysis, and Differential Equations. Experiences are shared through publications and presentations at meetings. Materials developed are disseminated through an anonymous ftp site.